Collaborative Research: Long-term Causes and Consequences of Changing Fire Regimes in the Hawaiian Islands

Wildfire is a growing threat in Hawai‘i, where recent fires have highlighted the vulnerability of island communities, ecosystems, water resources, and cultural landscapes. Yet current records of past fires are too short to determine if recent fire activity is abnormal or how other factors have combined to shape fire risk over time. This collaborative project examines the long-term causes and consequences of changing fire regimes across the Hawaiian Islands to better understand how tropical island ecosystems respond to fire and how wildfire risk develops over centuries. The project generates knowledge that can inform science-based wildfire management and hazard mitigation in Hawai‘i and other Pacific islands. It also supports training for a postdoctoral researcher and undergraduate students and expands public outreach through partnerships with the Hawai‘i Wildfire Management Organization and the Pacific Fire Exchange. Resulting datasets will be publicly available for researchers, educators, and resource managers.

The project produces new records of wildfire history for the past 2,000 years using sediment cores from lakes and wetlands across multiple Hawaiian Islands, including Hawai‘i, Maui, Moloka‘i, O‘ahu, and Kaua‘i. These standardized, high-resolution records of charcoal accumulation rates enable effective comparisons of fire timing and frequency among sites. Selected sites will be analyzed for polycyclic aromatic hydrocarbons, carbon isotopic composition, pollen, and plant leaf wax biomarkers to elucidate the types of vegetation that burned, track resulting vegetation changes, and assess ecosystem resilience before and after fire events. These wildfire records will be compared with paleoclimate data, archaeological timelines, volcanic eruption histories, and gradients such as rainfall, temperature, and evapotranspiration to test whether past fires were driven primarily by volcanic ignition, hydroclimate variability, human activity, or interacting combinations of these factors. The project aims to produce a regional network of paleofire records and new insight into how fire has reshaped Hawaiian ecosystems, including whether some wet endemic forests experienced long-lasting changes following past burns.